Materials MicroWorld: A National Museum Exhibition and Education Project on Materials Science

0000586
FLEISCHER

The Materials Research Society will develop "Materials MicroWorld." This will be a nationally traveling exhibition that promotes public understanding of basic scientific principles, issues, and trends in materials research. "Materials MicroWorld" will be developed in two exhibit versions, 5000-sq.ft. and 1500- sq.ft., to serve large and small science centers nationwide. Accompanying educational materials and training videos will enable each museum to tailor exhibit-related programming to suit the needs of audiences and the capabilities of staff. An electronic 'Best of Materials Science Activities ' booklet will be developed for publication on the Materials Research Society website to deepen understanding of exhibit concepts and provide parents and educators with a variety of explorations on materials science that can be safely conducted at home or in school.